Quantitative Analysis of the Electroencephalogram

This research project involves the design of an Expert EEG system for the automatic analysis of abnormal electroencephalograms (EEG) and of sleep EEG. The computer system will use the knowledge and inference schemes used by human EEG analyzers and engineers to achieve fast, correct interpretation of several channels of EEG. The problems to be solved are also applicable to the general problem of detecting aperiodic signals in a noisy environment. More generally, this work will contribute to better understanding of the methods of Artificial Intelligence as applied to bioengineering.